Molecular Genetics and Cellular Biology in Primary and Secondary Education

Over the next three years the University of Tulsa will conduct a series of four week workshops for regional elementary and secondary biology teachers, and their principals, in the areas of modern molecular genetics and cellular biology. This project was designed in direct response to the expressed needs and requests of regional teachers, principals and superintendents who, in every instance, listed a lack of knowledge in modern molecular genetics and cellular biology as their primary deficiency in the teaching and/or understanding of modern biology. Twenty teachers per year and their principals will participate in this program which will serve as the basis for an articulated regional biology program. The workshop will be heavily content-based with researchers from universities, research institutes, and private industry acting as presenters on the specific topics with which they are working. Half of each day will be spent in the laboratory dealing with the experiential aspects of the topics covered in the lecture portions. Teachers and Master Teachers working together will also "translate" the lab activities to the appropriate level for students. Elementary and secondary teachers and administrators will work together to create an articulated educational model. Presentations by superintendents who have been successful in implementing an articulated curriculum, a concurrent principal's workshop, and a rigorous evaluation of the project will be implemented. Previous experience has demonstrated that a combined elementary/secondary program can be extremely successful in fostering change in a school district. The University of Tulsa, the Tulsa Educational Foundation and the participating school districts have contributed 24% as their share of the cost of this project.